U.S.-Japan Cooperative Science: Design, Synthesis and Characterization of New Fullerides

9603262 Zhou This award supports a three-year collaborative research project between Professor Otto Zhou of the University of North Carolina at Chapel Hill (UNC) and Dr. Yoshihiro Iwasa at the Japan Advanced Institute of Science and Technology in Ishikawa, Japan. The researchers will undertaking studies of the design, synthesis and characterization of fullerides. Rational approaches will be adopted to synthesize materials with the desired properties (electronic, optical and magnetic properties) from the molecular level. Investigations will involve: 1) superconductivity in metal intercalated fullerides; 2) metal-insulator transition, and 3) fullerene polymers. The proposal brings together the efforts of two laboratories that have constituted different parts of the process. By combining the strength in materials synthesis and structural characterization at UNC with the expertise and facilities for property measurements in Japan, the researchers will be able to take a comprehensive approach to address the physics and materials science issues of superconductivity in metal fullerides and explore other novel carbon fullerene-based compounds. Through the exchange of ideas and technology, this project will broaden our base of basic knowledge and promote international understanding and cooperation. ***